High Performance Connections for Research and Education for the Pennsylvania State University

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the Very High Performance Backbone Network Service (vBNS). Applications include molecular dynamics simulations; computational fluid dynamics; earth systems science; astronomy and astrophysics, including real time control of the Hobby-Eberly telescope in West Texas; surface chemistry with ion beams and lasers; and high performance data sharing. Collaborating institutions include Cornell Theory Center, Pittsburgh Supercomputer Center, National Center for Atmospheric Research and Arecibo Observatory.